NSF Astronomy and Astrophysics Postdoctoral Fellows Symposium; January 8-9, 2005; San Diego, CA

AST-0456581
Rosenberg, Jessica

Dr. Jennifer Rosenberg at the Smithsonian Institution Astrophysical Observatory, and co-PI Eric Gawiser at Yale University, are awarded funds to organize and conduct the third annual symposium of the NSF Astronomy and Astrophysics Postdoctoral Fellows (AAPFs). The symposium, to be held January 8-9, 2005 in San Diego, California, will bring together fellows, faculty mentors, prospective AAPF applicants, and interested members of the astronomical community. This will allow the fellows to present their research and educational activities, and better establish ways to enrich the fellowship experience itself. Additionally, fellows will obtain opportunities to establish interdisciplinary programs with colleagues during the symposium.

The integration of educational activities into the research efforts of the fellows provides for a broad impact of the fellowship program. Many fellows participate in K-12/public outreach activities, leading to enhancement of the public's interest in science. The symposium will allow the fellows to share their ideas and experiences, not only among themselves, but also with faculty mentors and others in attendance.
***